Purchase of CCD-Based X-Ray Diffractometer

This award from the Chemistry Research Instrumentation and Facilities Program and the Office of Multidisciplinary Activities will assist the Department of Chemistry at University of Wisconsin at Madison acquire a CCD-Based X-Ray Diffractometer. This equipment will enhance research in a number of areas including the following: (1) organosilicon chemistry, (2) mechanistic and exploratory organic photochemistry, (3) enantioselective synthetic chemistry, (4) electron transfer studies in intervalence compounds, (5) minimum increments of hydrophobically induced folding and (6) mechanistic organometallic chemistry The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.